Texas Power and Energy Conference (TPEC) February 2022 Travel Proposal

The Texas Power and Energy Conference (TPEC) is a student-run IEEE technical conference that started in 2017. The sixth annual event, TPEC 2022, will be held on the campus of Texas A&M University in College Station, Texas, on February 28 and March 1, 2022. This two-day event will bring together participants from industry and academia to present and discuss the latest technological developments and challenges in the area of power and energy engineering. The conference will include paper sessions, keynote speakers, a student poster competition, and an industrial sponsor and job fair. There will also be a tour included of the Smart Grids Control Room Lab located at the Center for Infrastructure Renewal (CIR) at Texas A&M University.

This grant will be used to support students traveling to and attending TPEC 2022. It is expected that about 15 students will benefit from this grant, offsetting their cost of participation. By joining in with TPEC 2022, they will benefit from hearing and discussing new research developments, hearing keynote speakers, networking with industry and academia, and having the opportunity to present their work in a paper or poster. The whole research community in power and energy engineering will benefit as well, by the value and perspectives these students will bring to the event.